Collaborative Research: Industry/University Cooperative Research Center for e-Design: IT Enabled Design and Realization of Engineered Products and Systems

The University of Pittsburgh and the University of Massachusetts at Amherst have joined to establish an Industry/University Cooperative Research Center (I/UCRC) for e-Design and Realization of Engineered Products and Systems. The Center will serve as a center of excellence in IT enabled design and realization of discrete manufactured products by envisioning that information is the lifeblood of an enterprise and collaboration is the hallmark that seamlessly integrated design, development, testing, manufacturing, and servicing of products around the world.